Three-Dimensional Dynamic Modeling of the Human Knee Joint

The goal of this research is to develop a three-dimensional dynamic mathematical model of the human knee joint. Previous three-dimensional models either have been static or quasi-static and, therefore, the models cannot predict the effects of dynamic inertial loads which occur in many locomotor activities. Only two-dimensional dynamic models have been investigated to date. The model that will be developed will consist of two body segments, a femur and a tibia, constrained by ligamentous forces. Changes that occur with time in joint position, joint reaction forces, contact point locations between femur and tibia, and ligament forces will be calculated. This research is important since it will lead to a more complete knowledge of how knee injuries occur. Most damage to the knee takes place in dynamic situations, which is the focus of this project. The approach that will be develop also could be used in modeling other articulating joints.